OPUS: Marsupial Frogs and Their Allies: A Successful Evolutionary Experiment in Diversification of Reproductive Modes

Of the approximately 6000 species of frogs recognized today, most reproduce by depositing eggs in water; the eggs hatch as tadpoles, which complete their development in water before metamorphosing into terrestrial adults. However, in 10 frog families, terrestrial eggs bypass the aquatic larval stage, developing directly into froglets. One of these families, Hemiphractidae, includes the marsupial frogs and their allies. Marsupial frogs are unique among frogs in their reproductive biology. This OPUS project will provide a comprehensive synthesis on the marsupial frogs and their allies. The work will synthesize over 40 years of research, and will result in the publication of book. The book will provide detailed information on the phylogeny, reproductive biology, evolution of egg-brooding, historical geology, and evolution of the group, as well as a systematic overview. About half of this information will be published for the first time in this study.

The project will provide research training for graduate students in various facets of interdisciplinary biological research, and interpreting and illustrating morphological features. An undergraduate student will work with the PI and educators at the Natural History Museum in producing a video for public viewing in the Museum gallery and web site (http://naturalhistory.ku.edu/). The latter recently has been revamped to provide extremely rich content by fusing the visual arts, journalism and hard science.